Phase Separation Control over Chemical Reaction Networks

The interior of living cells is a densely packed environment where many molecules self-organize into dense droplets by spontaneous aggregation, a process known as phase separation. Like people clustering into groups within a large crowd, these separated droplets of molecules can have the effect of protecting, isolating, or facilitating specific processes. Understanding the influence of phase separation on cellular reactions is crucial to advancing the national priority area of biotechnology: the success of engineering cells to manufacture medicines, materials, and sustainable chemicals depends on how reliably we can organize and route the internal chemistry of the cell. This project develops the mathematical and computational foundations to understand how such droplets shape the chemical reactions that sustain life, asking how sorting molecules into droplets changes the stability, precision, and responsiveness of a cell's chemistry. The theoretical and computational work will deliver broadly usable analytical tools and open simulation software that lower the barrier to this kind of analysis across the field. The project will also train researchers at the interface of applied mathematics, chemistry, and biology and contribute to student education at the host institution. By clarifying design principles that nature already uses, this research advances both fundamental understanding and the practical capacity to engineer predictable, dependable biological systems.

This project investigates how liquid-liquid phase separation influences the behavior of chemical reaction networks (CRNs), focusing on stability, controllability, and robustness of equilibria. CRNs will be analyzed in the regime where diffusion dominates reaction, using structural properties such as deficiency and concordance to compare phase-separated systems against well-mixed and classical membrane-compartment models, and extending the theory to incorporate feedback among compartment size, composition, and chemical state. The project will also examine how phase separation, when regulated through production of phase-separating species, alters chemical fixed points and whether it confers robustness on networks that lack it in well-mixed conditions. Finally, the spatiotemporal dynamics of phase separation will be captured through the Cahn-Hilliard approach, and spectral numerical methods will enable simulation of reaction-phase separation dynamics under time-varying production and changing condensate morphology. Analyses will characterize how phase separation attenuates perturbations, whether these effects depend on droplet morphology, and how multi-phase condensates organize reactions. Biologically relevant networks, including models of central metabolism drawn from the literature, will serve as test cases, connecting the mathematical results to the reaction systems that underpin cellular engineering and biotechnology applications.